Automorphism Groups and Moduli Spaces

The PI studies automorphism groups and moduli spaces, using techniques
from homotopy theory and geometric group theory. The goals of the project
are to determine the homotopy type of the classifying space of the stable
automorphism group of free groups, to prove homological stability theorems
for new families of groups, to adapt the tools of Waldhausen's K-theory of
spaces to the mapping class groups and automorphism groups of free groups,
and finally to obtain a better understanding of exotic infinite loop space
operads.

To study a large collection of objects, it is useful to classify the
objects, that is to arrange them into meaningful classes. This is very
much like classifying books by subject in a library and corresponds in
mathematics to finding invariants, or common properties of the objects
considered. One can consider a finer type of classification which moreover
takes into account the notion of neighborhood, also called the topology.
Such a classification remembers which objects or classes of objects are
closely related to each other. The collection of objects is then
classified by a topological space, not just by a set. This space is called
a moduli space for the objects. It encodes a lot of information about the
objects. In particular, the symmetries of the objects, also called
automorphisms, play an important role in the topology of the moduli space.
The PI studies moduli spaces of geometric objects like graphs, surfaces
and higher dimensional manifolds.